PBS NewsHour STEM Student Reporting Labs: Broad expansion of youth journalism to support increased STEM literacy among underserved student populations and their communities

The Discovery Research K-12 program (DR-K12) seeks to significantly enhance the learning and teaching of science, technology, engineering and mathematics (STEM) by preK-12 students and teachers, through research and development of innovative resources, models and tools (RMTs). Projects in the DRK-12 program build on fundamental research in STEM education and prior research and development efforts that provide theoretical and empirical justification for proposed projects. This project scales up the PBS NewsHour Student Reporting Labs (SRL), a model that trains teens to produce video reports on important STEM issues from a youth perspective. Participating schools receive a SRL journalism and digital media literacy curriculum, a mentor for students from a local PBS affiliate, professional development for educators, and support from the PBS NewsHour team. The production of news stories and student-oriented instruction in the classroom are designed to increase student learning of STEM content through student-centered inquiry and reflections on metacognition. Students will develop a deep understanding of the material to choose the best strategy to teach or tell the STEM story to others through digital media. Over the 4 years of the project, the model will be expanded from the current 70 schools to 150 in 40 states targeting schools with high populations of underrepresented youth. New components will be added to the model including STEM professional mentors and a social media and media analytics component. Project partners include local PBS stations, Project Lead the Way, and Share My Lesson educators.

The research study conducted by New Knowledge, LLC will add new knowledge about the growing field of youth science journalism and digital media. Front-end evaluation will assess students' understanding of contemporary STEM issues by deploying a web-based survey to crowd-source youth reactions, interest, questions, and thoughts about current science issues. A subset of questions will explore students' tendencies to pass newly-acquired information to members of the larger social networks. Formative evaluation will include qualitative and quantitative studies of multiple stakeholders at the Student Reporting Labs to refine the implementation of the program. Summative evaluation will track learning outcomes/changes such as: How does student reporting on STEM news increase their STEM literacy competencies? How does it affect their interest in STEM careers? Which strategies are most effective with underrepresented students? How do youth communicate with each other about science content, informing news media best practices? The research team will use data from pre/post and post-delayed surveys taken by 1700 students in the STEM Student Reporting Labs and 1700 from control groups. In addition, interviews with teachers will assess the curriculum and impressions of student engagement.